Student International Travel Support for IEEE International Conference on Networking Protocols (ICNP '04); October 5-8, 2004; Berlin, Germany

The purpose of this grant is to provide support for students from the United States to travel to Berlin, Germany to attend the 12th IEEE International Conference on Networking Protocols (ICNP '04). ICNP is a premier networking conference. The goal of the travel support is to largely defray the costs of student travel so that more students may attend the conference. These students will attend talks from top researchers in networking, participate in panel discussions, and meet members of the networking research community. This grant will enable students to attend the conference that would not otherwise be able due to financial constraints.